Biocompatible Technology for a Light Sensitive Retinal Prosthesis

0201927
Humayun
The goals of this project will be to design and develop a retinal prosthesis module for intraocular implantation. The design will have a sensor/power unit and an electronic retinal stimulator array. Both components will use available technologies to the maximum extent possible.

Program elements:
a) Assess and develop a novel implantable image sensor/power receiver unit using available technology (via DARPA/NRL program) to the maximum extent possible.
b) Integrate the camera/power unit and channel glass electrode package with stimulator electronics and verify system operation.